Mathematical Sciences: Research in Enumerative Combinatorics

Gessel This award supports the investigations of Gessel on problems in several areas of enumerative combinatorics. All involve applications of the method of generating functions, either to solve counting problems or to study sequence of rational numbers. The topics to be studied are binary trees, noncommutative symmetric functions, rook theory, rational functions with nonnegative power series coefficients, and generalized Dedekind sums. This research is in the general area of Combinatorics. One of the goals of Combinatorics is to find efficient methods of studying how discrete collections of objects can be arranged. The behavior of discrete systems is extremely important to modern communications. For example, the design of large networks, such as those occurring in telephone systems, and the design of algorithms in computer science deal with discrete sets of objects, and this makes use of combinatorial research.